Three-dimensional Structure and the Initiation of Abyssal Hill Faulting along the East Pacific Rise, 9 degree 40'N- 10 degree N and 12 degree 30'N-13 degree 15'N

This study will combine existing multi-channel seismic, Seabeam and SeaMarc data to produce a three dimensional image of fault structure along the East Pacific Rise. The study will test hypotheses of how abyssal hills are formed and how subsurface processes affect the surface morphology.